Mathematical Sciences: Optimal Inference in Regression with Long Range Dependent Errors and in Bilinear Time Series

Data in diverse fields such as hydrology,geophysics and economics often display long range dependence. Efficient adaptive estimators for the model parameters of such processes will be developed. Bilinear time series models arise in economics, meteorology, oceanography, and seismology along with several other areas. Optimal inferential procedures for these important classes of models will also be developed. **